The Genetics of Genetics: Genes Controlling Recombination in Maize

Homologous recombination between chromosomes is a fundamental source of genetic variation and the basis of nearly all genetics and breeding. Meiotic recombination also permits construction of genetic maps, important for applications ranging from marker-assisted selection to map-based cloning of valuable genes. Remarkably, despite its central importance to genetics, little is known about the process of homologous recombination in higher plants, and even less about how it is controlled. This is a comprehensive study of the meiotic recombination process in maize, the largest agricultural crop in the U.S. and a uniquely suited model system for these studies. The study is broad in scope, from discovering new genes involved in the process to mechanisms of crossing over and electron microscopy of protein complexes carrying out recombination events. This research will directly enhance understanding of how plant genomes generate and maintain diversity, how plant genomes are organized and how plant genome organization can influence recombination outcomes. The goal is also to develop a resource on which the community can base future studies of recombination in all plants.